Computational Imaging and Superresolution Workshop, to be held on June 10, 11 and 12th at the Charlotte Research Institute, in Charlotte, North Carolina.

Abstract

Proposal Number: ECCS-0830335
Proposal Title: Computational Imaging and Superresolution Workshop
PI Name: Fiddy, Michael A.
PI Institution: University of North Carolina at Charlotte

Scope:

This grant will provide part of the primary support for a workshop on computational imaging. Primary support, for $25,000, is being provided by the Charlotte Research Institute.

Intellectual Merit:

Recent advances in technologies for optical wavefront manipulation, optical detection and digital post-processing have stimulated new possibilities for imagining systems in the visible and IR regimes. This opens up the possibility of developing imaging systems which differ in form factor and capabilities from traditional imaging systems and camera designs.

This workshop will bring together both hardware and software experts as well as mathematicians and physicists who are actively working on the fundamental issues of information theory and light-matter interactions, to bring new ideas to this emerging area.

Broader impacts:

These different communities working together will identify new challenges for the optimal use of optical and electronic hardware that will impact applications that range from cell-phone cameras to noninvasive cancer screening.

_____________________________________________May 27, 2008
Paul J. Werbos
Acting Program Director for EPDT
ECCS Division
Engineering Directorate, NSF